Crystallization from Supercritical Fluids: Application to Biochemical and Pharmaceutical Compounds

Preparing highly-pure and reasonably uniform crystals of pharmaceutical compounds is a task of major importance in the manufacture of drugs. The uniformity of size and the purity of the crystals often determine one's ability to control the dosage of the drug in the final product. Processing the pharmaceutical compounds under a special combination of pressure and temperature (known as "supercritical states") may offer close-to-ideal conditions for controlling the purity and the size of the resulting crystals. This proposal seeks to investigate this innovative method for the production of certain pharmaceutical compounds. If successful, the resulting technology could have a significant impact on many other manufacturing and separation processes, including the processing of some biochemical systems.